SBIR Phase I: Noncorroding Steel Reinforced Concrete

This Small Business Innovation Research Phase I project will develop processes and
products that effectively prevent corrosion of steel-reinforced concrete, and enhance the
interface and mechanical properties between the reinforcing steel and the concrete. A
tough and easily applied reinforcement coating would be relatively insensitive to damage
during transit and placement. Also, the improved mechanical interface with the cement
matrix would reduce the ability of moisture to migrate along the reinforcement, which
would increase the life cycle of the reinforced structures. This technology is expected to be robust and inexpensive and have potential commercial applications throughout the construction industries.